CRCNS Data Sharing: Neurophysiological Studies of Sensory Coding

Proposal No: 0749056
PI: Yang Dan

Award Abstract:

This award supports the preparation and sharing of computational neuroscience data as part of an exploratory activity aimed at catalyzing rapid and innovative advances in computational neuroscience and related fields. Investigators Yang Dan, Tim Blanche, Jack Gallant, and Frederic Theunissen will make several data sets available, each exploring different aspects of sensory coding: (1) cortical slice data acquired in order to examine the effects of complex spike trains in the induction of long-term synaptic modification; (2) recordings of primary visual cortical neurons made during stimulation with complex stimuli, white noise, and natural images; (3) recordings from visual area V4 during stimulation with parametrically varying bars, rings and gratings; (4) recordings from visual areas V1, V2, and V4 during stimulation with a rapid dynamic sequence of gratings; (5) recordings of neurons at three levels of the avian auditory system during stimulation with complex synthetic and natural sounds; and (6) large-scale neuronal recordings from primary visual cortex made with multi-site electrode arrays that allow simultaneous recording from more than a hundred single units at once. It is anticipated that these data will be useful for the study of spatial and temporal neural coding, nonlinear receptive field properties, learning rules, hierarchical processing strategies, and other aspects of the analysis of complex sensory information.